Information and Debt Markets: Reputation, Financial Intermediation and Optimal Maturity Structure

This project makes a significant contribution to an increasingly important line of research in financial economics. It examines the relationship between borrower and lender in the credit markets, specifically looking at the effects of information, particularly when the borrower and lender have different information about each other. The important roles of financial institutions and the details of financial contracts have only recently been addressed by economic theory. Past research has shown that the provisions of contracts have virtually no effect on the real variables in an economy if both parties to the contract have all the information available. This, however, is not a realistic situation. Typically, a lending institution such as a bank does not know as much about the borrower's ability or inclination to repay a loan as the borrower does. Thus banks and other lending institutions face risk in making a loan. That risk is ameliorated as the bank accumulates more information about the client. For example, the bank can realistically be more certain that a client who has a long history of repaying loans will repay the next loan, than that a new client will repay the loan. Reputation clearly plays an important role in both the borrower's wish to acquire a loan and in the lender's desire to let one. This project specifically analyzes the value of reputation to a borrower. In a game theoretic framework Professor Diamond examines how firms choose to accumulate investment capital, either through loans or by selling stock directly to the public. These decisions are very important in that in the aggregate they have a great impact on the financial sector, the availability of credit to other firms and consumers, and the incentives for banks themselves to take risks.